Bipartite Geminvirus SqLCV Movement Protein Function

9417664 Lazarowitz The aim of the research is to understand the cellular interactions that occur between a plant virus and its host that define the permissive host range of the virus and which lead to the development of systemic infection. The virus examined is the squash leaf curl virus (SqLCV) which, unlike most plant viruses, has a DNA genome. Two proteins encoded by the viral DNA, BR1 and BL1, are important for the cell-tocell movement of the virus during infection. BR1 is predominantly found in the nucleus and BL1 is found predominantly at the cell wall/plasma membrane. Lazarowitz has proposed a model in which BL1 and BR1 act in concert to direct the short distance cell-to-cell movement of the viral genome, and BR1 promotes viral long distance movement in the phloem. This model predicts that BL1 increases the size exclusion limit of plasmodesmata in the cell wall to facilitate viral gemone movement to adjacent uninfected phloem cells. It further predicts that BR1 is a nuclear shuttle protein that binds viral ssDNA and moves it to the cell periphery. At the cell periphery the complex interacts with BL1 which allows it to move locally to adjacent uninfected cells and sieve elements which provide long distance transport through the phloem. The model is tested by 1) using direct assays and tissue-specific promoters to demonstrate that BL1 and BR1 function in cell-to-cell and systemic movement, host range and tissue specificity, 2) localizing BL1 and BR1 in infected and transgenic plants to specific tissues and subcellular compartments and determining their effects on plasmodemal size-exclusion limit, 3) characterizing the biochemical properties of BL1 and BR1, and their interactions that lead to transport of viral nucleic acids, and 4) identifying and purifying host proteins interacting with BL1, and cloning and characterizing the genes encoding these proteins. In the latter situation, it is expected that the proteins involved in viral transport wil l be the same as those normally involved in cell-to-cell communication and in the regulation of phloem transport. %%% The aim of the research is to understand the cellular interactions that occur between a plant virus and its host that define the permissive host range of the virus and which lead to the development of systemic infection. The virus examined is the squash leaf curl virus (SqLCV) which, unlike most plant viruses, has a DNA genome. Two proteins encoded by the viral DNA, BR1 and BL1, are important for the cell-tocell movement of the virus during infection. BR1 is predominantly found in the nucleus and BL1 is found predominantly at the cell wall/plasma membrane. The studies test the model that BR1 acts as a shuttle to bring the DNA to the plasma membrane from the nucleus. Once at the plasma membrane, the model predicts that BR1 works in concert with BL1 to allow viral component transport through the connections between plant cells, the plasmodesmata. Microscopy studies will define the tissue and subcellular location of BR1 and BL1 in infected and transgenic plants. Microinjection studies will directly examine the effects of each protein on the cell-to-cell movement of the BR1-DNA complexes and non- specific molecules of graded size. Studies in tissue culture model systems will define the domains of BR1 and BL1 required for their correct targeting to the plasma membrane or nucleus and for direct interaction with each other. The studies are ultimately directed at identifying the host cell proteins that interact with BL1. The studies show whether different mechanisms are used for virus short or long distance movment, and if phloemrestricted viruses move by a different mechanism from other viruses. Understanding the mechanism underlying these phenenomena is required in order to develop strategies for engineering virus- resistant plants. ***